Science, Operations, and Maintenance Support for the United States Antarctic Program (USAP)

OPP- 0000373
This contract is for specified support of the United States of America Antarctic Program (USAP). The support provided includes administrative functions at the Denver, Colorado Headquarters and at field offices in Port Hueneme, California; Christchurch, New Zealand; and at two or more locations in Antarctica. In Antarctica, the contractor is responsible for the operations of McMurdo, South Pole and Palmer Stations and the seasonal air support facilities (Williams Field, Annual Sea-ice Runway, and Pegasus Runway) near McMurdo Station. The contractor is also responsible for the management of a biological laboratory and field support facilities at McMurdo Station, the lease operation and maintenance of an ice-strengthened research ship (LAURENCE M. GOULD), and the lease of a research vessel with ice-breaking capability (NATHANIEL B. PALMER). Additionally, all major construction at U.S. facilities in Antarctica is the responsibility of the civilian contractor.

While the contract was awarded on October 18, 1999, the effective date for assuming the USAP support mission is April 1, 2000. Therefore, this award of $10,000,000 will fund the transition period, from contract award until April 1 (approximately $1.2M), and the first month of the third quarter of Fiscal Year 2000.